U.S. Australia Cooperative Study of the Northern Branch of the Antarctic Circumpolar Current

9414972 Filloux In this project, four principal investigators with support from five separate institutions will study energy, momentum, and vorticity budgets, and zonal volume and heat transport variability in the Antarctic Circumpolar Current (ACC) south of Tasmania, Australia. A mix of moored current meters seafloor electric field recorders, and inverted echo sounders will be used in collaboration with similar resources from scientists in Hobart, Tasmania. In this component, the PI will work with the University of Hawaii and Scripps Institution of Oceanography to oversee the construction and deployment of the Bottom Pressure gauges and seafloor Horizontal Electric Field (HEF) instruments for determining barotropic current variability.